The Economics of Science

The investigator will write a review essay on the economics of science that will serve as the basis for a workshop discussion among a group of eight scholars from economics and STS disciplines. The day-long workshop will consist of three or four sessions focusing on broad questions of the application of economics to science issues. Possible session topics are: "The Maximizing Model Applied to Science," "The Organization of Scientific Inquiry," and "The Allocation of Scarce Resources." The review essay, written responses to the review essay, and perhaps other readings suggested by participants, will be distributed before the workshop and will serve as the common starting point for the discussions. Based on comments and the workshop discussion, the investigator will revise and submit the review essay for publication. Participants will submit their thoughts on whether further research in economics of science is promising and, if so, what questions it should seek to answer. The investigator will also compile these results in a form suitable for publication. The purpose of the project is to allow exchanges to occur between scholars with overlapping research agendas and complementary research methods. Results should lead to deeper and more useful understanding of the behavior of scientists and organization of the scientific enterprise, and to identification of areas where collaboration will be fruitful. It may help to form a new subfield of scholars who specialize in the study of the economics of science, whose issues range from the cognitive status of scientific knowledge to the efficient allocation of scientific funds.